A Proposal for Support of the Chinese-American Workshop on Nonivasive Diagnostic Techniques

This grant will fund a Chinese-American workshop on Non-Invasive Diagnostic Techniques. The workshop will consist of Presentations on various non-invasive techniques by both the American and the Chinese participants. The presentations will be followed by extended discussions about the technologies. It is expected that as a result of this workshop, innovative technologies and novel techniques to perform non-invasive diagnosis will be identified. Also, areas for scientific collaborations between the participants could be identified as a result of the meeting. The results of the workshop will be the subject of a report written by the principal investigator.